Collaborative Research: Engineering synthetic multi-kingdom anaerobic communities to produce volatile fatty acids from biomass

This research will construct new microbial partnerships that are inspired by nature and these partnerships will enable value-added chemical production from waste materials, advancing U.S. biomanufacturing goals. Through this research, new automation-based experimentation tools will be developed to identify combinations of microbes that result in the highest level of plant waste conversion to commodity products. Additionally, genetic engineering tools will be developed to further bolster bioproduction in microbes that are difficult to grow and control in the lab. Methods and models that emerge from this research will likely advance related fields of science, such as improving the understanding of the human gut microbiome and its role in health and disease. This project will facilitate the training of the next generation of scientists and outreach activities will be conducted and emphasize the importance of microbes in the environment.

The overall goal of this collaborative project is to decipher how microbial partnerships form in nature, and mimic that partnership to construct synthetic consortia that produce sustainable chemicals from plant and agricultural waste. Anaerobic consortia have evolved unusual abilities and microbial partnerships that permit them to thrive in the most extreme environments on earth. However, they are typically recalcitrant to culture, and have not yet been harnessed as production platforms since the mechanisms that control community structure and stability (especially at industrial scale) are poorly understood. To address this limitation, this work will partner key players from the herbivore rumen in synthetic communities – anaerobic fungi to degrade plant biomass (lignocellulose) and chain elongating bacteria to upgrade fungal byproducts to produce volatile fatty acids (VFAs). This project will combine high-throughput screening of anaerobic consortia with detailed biochemical characterization to unmask the critical “tipping points” that drive rumen microbial cooperation. It will also build new tools to assess and drive synthetic consortia stability to achieve reproducible outcomes. Briefly, this collaborative project will (1) leverage a new anaerobic Biofoundry at UCSB to rapidly optimize lignocellulose-degrading microbial communities by tuning membership and shared metabolite uptake during cultivation, (2) engineer anaerobic fungi to produce additional lactate to bolster metabolic exchange and promote stability and productivity in synthetic consortia, and (3) develop new editing tools in chain elongating bacteria to understand and drive synthetic community engraftment, and the production of longer chain VFAs, enabling a roadmap to tailoring chain length product profiles. Overall, the tools and workflows developed here will help establish both predictable and reproducible outcomes in synthetic microbial communities – enabling applications from biodegradation from waste to bioproduction and biomanufacturing.